Purchase of a Dynamic Mechanical Analyzer

Dynamic mechanical analysis is an essential characterization technique for a wide variety of materials. Cooper's current dynamic mechanical testing is performed on an aging and increasingly unreliable instrument. This grant will permit the purchase of a dynamic mechanical analyzer with expanded capabilities over his current instrument.